CAREER: Robust Control of Passive and Non-Passive Aerospace Systems

The research plan in this CAREER project focuses on new challenges in the robust control of linear and nonlinear, passive and non-passive systems. There are two main research objectives. One of the objectives is to extend and generalize the existing robust stability results for multibody nonlinear flexible spacecraft to include a broader class of systems and develop synthesis methods for dissipative controllers proposed for such systems. The other objective is to develop new robust control methodologies for open-loop stable nonpassive, open-loop unstable, and non- minimum phase systems. Extensions of passivity based techniques and development of new robust control methodologies for such systems are pursued. In particular, the new methodologies using Generalized Predictive Control (GPC) techniques are developed. First, an investigation of GPC controllers for linear time-invariant (LTI) single-input single output nonpassive systems is carried out. Subsequently, the extensions to LTI multi-input multi-output and nonlinear non-passive systems are considered. `Proof-of concept` laboratory setups, which can represent a class of linear and nonlinear nonpassive systems of interest, are also developed. These systems can be used not only as benchmark systems for numerical simulation and experimental validation of new control methodologies, but also as laboratory experiments for education. Besides involving undergraduates at various levels of research work, a well structured industry-university cooperative education plan for undergraduates, and a plan for providing advance education opportunities for high school students is designed. Three new graduate courses in the area of controls are developed to help build a strong controls program in the Department of Mechanical Engineering. An innovative study abroad program for an international collaborative education is also formulated.